U.S.- Spain Cooperative Research: Optical Studies of Carbon Nanotubes under High Magnetic Fields

0072110
Menendez

This three-year award will provide support for Jose Menendez of Arizona State University to work with Jose Calleja at the Universidad Autonoma de Madrid, Spain. The primary goal of their research is to perform inelastic light scattering studies of carbon nanotubes under high magnetic fields, in the expectation of characterizing nanotube samples, which always contain a heterogeneous distribution of nanotube sizes and structures. In addition, they plan to investigate some unusual magnetic field effects - ranging from a metal-insulator transition to an enhancement of the predicted Peierls distortion in 1D-metals -- that have been predicted theoretically.

The two laboratories are complementary. The US laboratory is equipped with Raman instrumentation with extremely high resolution and contrast. The Spanish laboratory is one of the few in the world where Raman measurements with fields as high as 12T and temperatures as low as 0.3 K can be performed routinely. Carbon nanotubes have been proposed as the ideal tip materials for scanning probe microscopies, as an alternative to composite